Istanbul at the Threshold

ABSTRACT

This is a proposal requesting support for the U.S. participation in a three-nation meeting
(U.S., Turkey, and Japan) to produce a brief book on the seismicity and seismic
vulnerability of Istanbul, a metropolis of over 12,000,000 in Turkey.
(1) Intellectual Merit: Because of the anticipated imminence of the earthquake, a large
amount of technical literature has been produced on these subjects over the past five
years. The object of the project is to synthesize this information and express it in
language intelligible to the reading public as well as to professionals involved in risk
reduction.
(2) Broader Impact: The book (with chapters on seismicity, structural vulnerability, and
recommendations for risk reduction) will be prepared by nine earthquake professionals,
three from each participating country (U.S., Turkey, and Japan) and published within a
period of six months after the meeting to be held in Turkey in early June 2005.